Random Finite Structures

9406809 Lynch The central theme of the proposed research is the analysis of logically definable properties of random finite structures. The kinds of finite structures that will be investigated occur in the theory of relational databases, descriptive complexity theory, operating systems, and the analysis of algorithms. There are two motivations for examining random structures. First, the logically definable properties of many formal languages have a very regular behavior on random finite structures. For example, every sentence in the language may have probability that converges to a limit, as the cardinality of the random structure increases. Often, the definable properties of a language correspond to some class of computational problems. Then the regularity condition can be exploited to show that some problems are not in the class: if a problem does not satisfy the regularity condition, then it does not belong to the class. The other motivation is that many computational processes, even deterministic ones, are unpredictable because their inputs are unpredictable. Then in order to estimate the likelihood or frequency of events, probabilistic analysis is necessary. The events be investigated include satisfaction of database queries and deadlock in multiprogramming systems. Both of these are definable in certain formal languages.